SBIR Phase II: Next-Generation Deep Ultraviolet Photochemical Reactor

The broader/commercial impact of this Small Business Innovation Research (SBIR) Phase II project is developing an innovative light-based process designed to degrade PFAS without requiring additional chemicals or producing harmful byproducts. The proposed technology aims to lower costs, simplify operations, and enhance treatment efficiency. Furthermore, the project fosters strategic industry partnerships to ensure these practical solutions can be deployed effectively nationwide.

This project proposes an innovative, high-risk approach utilizing deep ultraviolet (DUV) photolysis. The primary technical challenge lies in scaling this photochemical process into a continuous, energy-efficient system capable of maintaining high destruction efficiencies at commercially relevant flow rates. The project scope encompasses the design, optimization, and validation of a next-generation flow-through UV reactor, with a core intellectual contribution involving the integration of advanced photochemistry, fluid dynamics, and reactor engineering to enhance mass transfer and minimize energy consumption across variable water matrices. The research is structured around four technical objectives: designing a DUV reactor with optimized photon distribution and a compact footprint; enhancing mixing regimes to overcome mass transfer limitations and mitigate interference from matrix constituents; executing pilot-scale testing to evaluate performance under real-world conditions; and developing engineering design strategies for modular scale-up to municipal-level capacities. The methodology integrates reactor engineering, experimental validation, and high-resolution chemical analysis to quantify degradation kinetics and transformation products.